A User-Based Polar Information System: Coordinating Responsibilities Through the U.S. Polar Information Working Group

The project proposes to coordinate continuing U.S. activities that have resulted in improved access to polar bibliographic information resources. Publication of research results by the polar scientific community continues to increase rapidly with 15,000 to 20,000 new papers being indexed annually. It is essential to deliver access to these research results to the desktop of every potential user of polar regions information in the most ,user-friendly manner possible. This project provides funding for three annual meetings of a polar information working group, in 1994, 1995 and 1996, to be held in Cambridge, UK, Washington, DC, and Anchorage, Alaska. Individuals representing U.S. bodies that provide polar information and/or information services will participate in each meeting. Effective dissemination of polar regions information is necessary for the United States to carry out research and management activities provided for in the Arctic Research and Policy Act of 1984 (amended 1990), the U.S. Arctic Research Plan and its revisions, and the U.S. Antarctic Program (USAP).